Collaborative Research: Organizational Adaptation and Survival During Reform: A Panel Study of Bulgarian Enterprises

This is a study of manufacturing enterprises in Bulgaria, 500 of them state owned and 100 new private companies, that will examine factors associated with success and failure over a four-year time span. Data from the first wave of this longitudinal survey have already been collected, and subsequent waves will add data from surveys and official sources. This study will test sociological theories of organization ecology that predict success of enterprises is shaped by the age of the enterprise, its size, structural inertia, dynamics of population density, environmental imprinting, niche width, and r-versus-K strategies. The study will also apply theories from neoclassical economics and from several competing economic approaches. This study capitalizes upon a unique opportunity to examine a society that is struggling to escape from totalitarian government and a demand economy to develop the institutions of a free market. The chief scientific goal is to test general theories of the success and failure of enterprises in an environment of rapid social change, but the study will also generate a substantial data base that will be of great use to many economists and sociologists in research projects of many kinds.